SaTC: CORE: Small: Probing Fairness of Ocular Biometrics Methods Across Demographic Variations

Biometrics technology related to recognizing the identities and traits of people has been widely adopted in intelligence gathering, law enforcement, and consumer applications. Recent studies suggest that face-based biometric technology does not work equitably across demographic variations. There is a pressing need to investigate fair biometric solutions and modalities toward accurate, fair, and trustworthy technology for enhanced security and public safety. Ocular biometrics, which consists of regions in and around the eyes, offers an alternate solution to face biometrics due to its accuracy and privacy. Furthermore, ocular biometrics can be acquired using regular cameras even in the presence of face covering. This project investigates the fairness of ocular biometric technology and develops solutions to mitigate unequal accuracy gaps across demographic variations. This project spans a highly multidisciplinary research area, which integrates engineering, statistics, mathematics, computing, and policy. The findings of this project are used to update the engineering curricula, including computer vision, image analysis, machine learning, deep learning, and biometrics. The advances made in this project are disseminated through publications, the investigator website, and seminars. This project also provides opportunities to broaden the participation of women, underrepresented minorities, and undergraduate students in computing.

This project investigates the fairness of ocular biometrics scanned in visible and NIR (Near-infrared) spectrum across demographic variations. The machine and deep learning models trained for ocular-based individual analysis are evaluated for unequal accuracy rates across demographic variations. The cause of unequal accuracy rates in the machine and deep learning algorithms are analyzed using explainable AI. The fairness-aware classifiers are developed by modifying the objective function, using ensemble techniques, and learning fair feature representation. Existing and publicly available ocular datasets are utilized for the evaluation and security analysis of the classifiers used in this study. The efficacy of the proposed solutions is assessed through standard biometric performance and fairness evaluation metrics.